Mathematical Sciences Research Equipment 1990

This is a grant under the Scientific Computing Research Equipment for the Mathematical Sciences program of the Division of Mathematical Sciences of the National Sciences Foundation. This program supports the purchase of special purpose computing equipment dedicated to the conduct of research in the mathematical sciences. This equipment is required for several research projects and would be difficult to justify for one project alone. Support from the National Science Foundation is coupled with discounts and contributions from manufacturers and with substantial cost-sharing from the institutions submitting the proposal. This program is an example of academic, corporate, and government cooperation in the support of the basic research in the mathematical sciences. This equipment will be used to support five research projects in the Department of Statistics and Actuarial Science of the University of Iowa: estimation of multivariate variance components by maximum likelihood and minimum distance criteria, the investigators are James Calvin and Richard Dykstra; analysis of telemetry data - finding the location of a signal, the investigators are Johannes Ledolter, Russell Lenth and Anderson- Sprecher; robust scale estimation in quality -improvement problems, the investigators are Robert Hogg, Marianthi Markatou, and Lenth; some topics in spatial statistics, the investigator is Dale Zimmerman; predictive regression estimators for finite population values using functions of the probability of selection, the investigator is Louis Rizzo.